Connection to THENet

9416297 Dixon This project connects two North Texas institutions to the Internet over 56kbps lines. They are Texas Wesleyan University and the Dallas Education Center. Faculty and students at the schools benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.